GOALI: Gas Holdup in Flocculating Slurries

ABSTRACT

Proposal Number: CTS-0209928
Principal Investigator: Heindel, Theodore
Affiliation: Iowa State University
Title: GOALI - Gas Holdup in Flocculating Slurries

The effect of fiber geometry and mass fraction on gas holdup in gas-liquid-fiber slurries will be investigated by the PI at Iowa State University and the PI at Kimberly-Clark Corporation. The most direct application of the results is to fiber de-inking and fiber bleaching in fiber floatation columns used in many pulp and paper producing companies. Previous results from independent investigation of the PIs have shown interesting behavior when fiber is added to a gas-liquid column. The gas holdup in the slurry can be significantly different with the presence of fiber. The proposal study will investigate the various aspects of this problem including the effect of fiber entanglement on gas holdup.